Mathematical Sciences: Estimation of Accuracy of Hypothesis Test and Confidence Sets

Estimation of accuracy of a statistical inference gives a revision of the usual probability statement (for example: p-value, or confidence coefficient) based on formalizing the statistical basis for evaluating such data-dependent measures. In this research these notions of conditional inference will be extended to multiple inference problems from multiple comparisons procedures to meta-analysis.